DOCTORAL DISSERTATION RESEARCH: Evidentiality and Meaning in Cusco Quechua

On the basis of fieldwork with native Quechua speakers in Cuzco, Peru,
we will construct a corpus of data concerning evidentiality and its
interactions with other phenomena, and then frame the results within a
formal semantic theory. We will investigate (i) how evidentials in
Quechua are interpreted, (ii) how evidential markers interact with
other semantic categories such as tense markers, and (iii) how the
various functions of evidential markers relate to each other.

The study is among the first in Quechua semantics. It contributes to
research on the cross-linguistic manifestation of epistemic and other
semantic concepts, and thus to the discovery of universal properties
of language. It is also a contribution to the development of semantic
theory, evidentiality having been largely neglected by formal
semanticists.

The results will be of interest to semanticists, Quechua
anthropologists, philosophers of language, and to linguists and
cognitive scientists more generally.